Imaging of Local Flame Chemistry and Flame Stretch to Improve Turbulent Combustion Models

Abstract Driscoll 9529203 The objective of the proposed research is to quantify and model the complex chemistry and stretch effects that occur within a premixed flame as it undergoes a turbulent wrinkling process. This proposal is a continuation of a previously NSF funded program. The PI plans to make use of a variety of laser diagnostic techniques to investigate two model problems relevant to premixed turbulent combustion. These unique flame experiments include: (1) the interaction of a flame front with an isolated vortex, and (2) the flame propagation in an isotropic homogeneous turbulent flow in a long channel, generated by a set of fans. The PI plans to measure profiles of important radical species, including CH, OH, O and H, and the stretch rates and vorticity along a premixed flame as it undergoes an unsteady wrinkling process. He also plans to obtain advanced Direct Numerical Simulations (DNS) with complex chemistry and compare results to both the flame-vortex and the homogeneous turbulence experiments, and to use the results to measure quantities that are required by other types of models.